Premixed Prevaporized Gas Turbine Combustor

Lean premixed prevaporized combustor (LPPC) is the most promising solution for elimination of NOx pollutant caused by conventional gas turbine engine. One of the most significant obstacles of practical use of LPPC is the flame front flashback, which is caused by the growing of the vortices inside the recirculation zone formed by gas mixture flow over a rearward-facing step in a channel. Removal of part of the boundary layer could effectively suppress the growth of those recirculating vortices. The simulation of the boundary layer suction of LPPC is carried out by using the revised MIMOC program (Ghoniem et al., 1983). This program used the random vortex model of Chorin, 1973, 1978, 1980), which allows the turbulent field to evolve as a fundamental solution of the Navier-Stokes equations without neither averaging procedure, which in turn requires closure modeling, nor introduces extra numerical diffusion, which can dampen the inherent natural instabilities of the flow field.